2013 Gordon Research Conference on Nuclear Chemistry (GRC-NC) & the 2013 Gordon Research Seminar (GRS); Colby Sawyer College, New London, New Hampshire; Summer 2013

The 2013 Gordon Research Conference on Nuclear Chemistry (GRC-NC) will be held at Colby Sawyer College, New London, New Hampshire, June 9 - 14, 2013. Prior to the Conference, the 2013 Gordon Research Seminar will be held June 8-9 for junior scientists. This award will provide partial registration fee support to a limited number of junior participants - graduate students and postdocs - who would otherwise be unable to attend the conference.